Science Observations with the POLARBEAR CMB Polarization Experiment

This program will use the newly constructed POLARBEAR 3.5-meter-diameter off-axis telescope near ALMA in Chile for observations of cosmic microwave background (CMB) polarization, in order to measure or constrain primordial gravitational B-modes and CMB lensing. The data will be used to map large scale structure and constrain neutrino masses and early dark energy models. The award will fund both operation of the telescope and production of the scientific results.

Broader impacts of the work include training of graduate students and a postdoc, collaboration with Chilean and Japanese scientists, and outreach to low-income and under-represented high school students.